I-Corps: The Smartphone-Based Interactive Fit Detection Mirror

The broader impact/commercial potential of this I-Corps project is in the development of a novel smartphone-based detection technology to assist in physical analysis of the human body, with applications for the medical, retail, or athletic sectors. Currently, fit-related problems are addressed primarily in a manual, labor-intensive process. Our innovation provides a small, portable, affordable, and sustainable solution in finding the optimal fit in a timely and cost-effective manner.

This I-Corps project will develop an integrated system to estimate the human body shape for medical and retail applications. This innovation has a unique combination of a sensor technology, image processing techniques, and machine learning algorithms to integrate fit-related data with merchandise information. The proposed device measures a subject’s fit using a smartphone camera, detects the body shape from the measurement using image processing techniques, and presents a subject with the merchandise that fits using machine learning techniques. Moreover, the innovation also integrates a subject’s biomedical information to personalize fit.